High-Speed Camera and Photographic Data Reduction System

A high-speed camera with an associated digital photographic data reduction system is being acquired. This equipment will be used by the Department of Mechanical Engineering in ongoing research.